The Granulite Transition Zone of South India, Award in Indian Currency

Description: This project supports travel and field expenses for Dr. R. Newton of the University of Chicago to collaborate with three Indian geologists: Dr. A.S Janardhan of Mysor University, Dr. T.C. Devaraju of Karnatak University, and Dr. B. Mahabaleswar of Bangalore University. The research will continue investigations of the late Archean deep-crustal section of southern Karnataka and northern Tamil Nadu, India, following on the earlier NSF-supported project of the Principal investigator. The orthopyroxene isograde ("Fermor's Line") will be investigated as to causative mineral reactions, areal continuity, geochemical progression, and evidence for the role of infiltrating fluids in the Archean deep crust. The major thrust of the project will be the elucidation of the early history of a continent. The project also provides funds for living expenses of the Indian scientists while doing laboratory studies in the U.S. Scope: The U.S. scientist is a well respected geologist with long experience in Indian geological research. He is particularly qualified to accomplish the most through the collaboration with the selected Indian scientists. The area of research is of interest to the U.S. and is also of great interest to the Indian scientists. The project fully meets the objectives of the US-India Program.